FORCE 11 Travel

The Future of Research Communication and e-Scholarship conference (FORCES2015) will be held in Oxford, UK in January 2015. This is the third in a series organized by FORCE11, a group from the research community and publishing communities dedicated to transforming scholarly communicaton through technology. The group involves researchers, librarians, publishers, technologists, funders and administrators for a trans-disciplinary summit and discussion. The funds will provide an opportunity for students and postdoctoral fellows to participate. Meeting materials are posted on the web, including videos of speaks, tweat and references to blogs and other articles about the conference.